Characterization of the Salicylic Acid Signal Transduction Pathway in Plant Defense Responses

9310371 Klessig Since 1985 our group has been studying various aspects of pathogenesis related (PR) proteins including their location, their function in disease resistance and their synthesis. Recent work in our, as well as several other, laboratories strongly suggests that salicylic acid (SA) plays an important signaling role in plant disease defense responses including the induction of PR genes. We propose to continue several lines of study to help further define SA's signaling role and identify components of this signal transduction pathway. In addition to free SA, a glucosidated form (SAG) is found in resistant cultivate of tobacco after infection with tobacco mosaic virus (TMV). The roles of these two forms of SA in the development and manifestation of systemic acquired resistance (SAR) will be addressed. The second line of study involves characterization of the cis element (s) and trans-acting factors which mediate SA-induced transcriptional activation of the acidic PR-2 (glucanase) gene of tobacco. In the third line of study SA-insensitive (SAIN) mutants of Arabidopsis will be isolated and characterized. Positive selection of SAIN mutants will utilize the tms2 gene of Agrobacterium tumefaciens fused to the SA- inducible tobacco PR-1 or PR-2 promoters. %%% These studies should lead to a better understanding of how the SA signal is generated, modified, perceived and transduced during defense responses. They may also provide insights into the mechanisms (s) of action of other SA-mediated physiological changes and should provide an opportunity to compare signal transduction in plants with that in microbes and animals. ***